MRI: Acquisition of a High Speed Stereo-PIV and PLIF System for Fluid Velocity and Temperature Measurements

1126371
Wright

The goal of this MRI is to purchase a combined, state-of-the-art high speed stereoscopic particle image velocimetry system for for thermal-fluids research. The team of researchers involves four faculty from Baylor University. The acquisition of this new equipment, which provides excellent performance specifications for the flows to be studied, would enhance the research capabilities of four researchers across two departments. The PIs are qualified and have access to resources which includes testing facilities where the new equipment would be utilized. Similar lower cost systems have been implemented in these facilities and preliminary data has been presented. There is a strong potential to advance knowledge in the proposed research areas, and ito quantify the effect of rotation on cooling applications in gas turbines.